ROW: String Rewriting and Combinatorics on Words

This is a research planning grant. The PI is preparing a proposal dealing with string rewriting and combinatorics on words. The PI has produced research results related to those in the area in which she is planning her proposal. It is expected that the present grant will lead to a continued development and intensification of the PI's research career.